SBIR Phase I: Remote Radio Frequency Measurements for Pipeline Monitoring - FloWatch911

This Small Business Innovation Research (SBIR) Phase I project will develop remote radio frequency (RF) measurements for critical monitoring of fuel pipelines for failures. This novel application of RF measurements uses the pipe as a RF transmission line, and antennas launch radar pulses that travel inside the pipe, without disturbing the transported fluid. Pulses reflect-off obstructions/breaches in the pipe and are measured by distributed low-cost GPS receivers to locate the fault.

The outcome of this research will lead to a marketable product, which when implemented by pipeline corporations, can save millions of dollars annually in pipeline spills and advert potential loss of life and property. Further, the development of this technology supports the current US homeland security initiative to protect valuable assets against overt acts of vandalism and/or terrorism.